Dissertation Research: Language and Affect in Historical Discourses: Japanese Subjective and Emotional Involvement in Modern History

This project involves the dissertation research of an anthropological linguist studying how Japanese people born between 1926 and 1935 talk about modern history, specifically world war II and the aftermath. The project will use standard methods of discourse analysis, including the recurrent emotive lexicon, the use of intensifiers, and the analysis of other forms of speech, to examine how people incorporate emotional overtones into their stories. Twenty males and 20 females will be audio- taped in extensive interviews on their recollections. This research is important because Japan is a major world trading partner, and increases in our understanding of Japanese cultural models of recent modern history can help us deal with Japanese reactions to current events.